Test Techniques for Deep Submicron Devices

This research focuses on developing modeling, analysis and vector
generation techniques for some of the emerging deep submicron defects.
Specifically, this project is developing techniques to model the excessive
power supply noise, the interconnect crosstalk faults and the resistive
short and open faults as statistical delay faults. The results of the
modeling process are being used to select target delay faults for test
evaluation and test generation. This project further investigates vector
generation techniques for the selected target delay faults. The tests not
only activate and propagate the faults but also cause various worst-case
noises such that the propagation delay along the sensitized path is
maximized. Furthermore, DFT requirements and rules for eliminating or
reducing the probability of having certain noise faults and for simplifying
vector generation for these faults are being explored.